Formation of Deep Submarine Pumice

This project is to use textural and chemical analyses of deep ocean pumice from the Okinawa Trough (provided by Dr. K. Nakamura) to 1) document the deep ocean origin of this material by measuring volatile contents of the glasses, 2) quantify pumice structures, and 3) use the combined data presented above to update current models of vesiculation and fragmentation in order to constrain physical conditions of these submarine eruptions. Additionally, the PI proposes to continue collaborative work with R.S. Fiske on a combined theoretical, experimental and field- based investigation of partitioning of tephra.